SGER: Understanding Computer Ethics CD-ROM

This project will complete an interactive multimedia CD-ROM on computer ethics. It will enhance the CD-ROM by adding a specific section on moral decision making for computer science and engineering students. It will re-shoot dated video footage of founders of the field of computer ethics, to bring the interviews up to date. Finally, it will create a test instrument to evaluate the efficacy of the CD-ROM.